Undergraduate Research Experiences in Economics

This Research Experiences for Undergraduates (REU) Program’s objective is to provide undergraduate students with the opportunity to actively participate in policy research, and to attract qualified, interested students, especially minority and women students, to quality Ph.D. programs in economics, public policy, and other social science disciplines.
The project will build upon the experience that the Andrew Young School of Policy Studies (AYSPS) at Georgia State University (GSU) has had during the past six years hosting a REU site. Students work one-on-one with a faculty member on a policy research project that is chosen originally by the faculty member, but that evolves with input from the students for the duration of the program,as they become active partners in the research. The AYSPS program seeks to guide, educate, and challenge students in the research process.